Stimulating System-Wide Improvement of Mathematics Achieve- ment in Grades 4-6

The University of Alabama at Birmingham will conduct a two-year program to stimulate school-wide mathematics achievement in grades 4-6 of four school systems within the metropolitan Birmingham area. The term "school-wide" is used here in a technical sense: the model is based on a school as a "unit of change", the smallest unit necessary to sustain change over the long term, and "school-wide" involvement means that at least 75% of the teachers will participate. The project features a six- week summer institute on strengthening content knowledge through a problem-solving approach, the nature of children's mathematical thinking, increasing pedagogical skills, and materials development. Throughout the following academic year, the project staff will visit participant classrooms to facilitate implementation. A leadership training workshop consisting of five days in the second summer and five days during the next academic year will prepare the participants for outreach. A total of 40 teachers will participate in the six-week institute, and 21 of these teachers will participate in the leadership training. The University of Alabama at Birmingham and the four local school districts have contributed an amount equal to 19% of the National Science Foundation request.